Safety and Performance Enhacement of Structures Through Structural Control

This project is concerned with questions of safety and reliability for controlled structures. The technical issues to be addressed in this research include: (1) quantitative evaluation of enhanced reliability against collapse under earthquake or wind loads of extreme as well as moderate intensity levels, (2) strategies for improving reliability of control system, i.e., electronic and mechanical components and computer software, and (3) cost-benefit trade off evaluation. Both passive and active systems, as well as combinations (hybrid) of both systems will be examined. Probability-based methods will be used in order to include the effects of uncertainties. The potential application of the concepts and methods in building structures, bridges, and electronic power transmission devices will be explored.